Collaborative Research: Impacts of Organic Nitrogen Dynamics in the Vadose Zone on Groundwater Quality

Clean groundwater supports drinking water, farming, and rural communities, yet it has been threatened for years by nitrogen moving through soil beneath the land surface. Efforts to protect water quality traditionally focus on nitrate, but large amounts of organic nitrogen are stored underground in hidden forms within soil. The organic nitrogen slowly breaks down into new nitrate years later, explaining why nitrate in groundwater persists even after farmers reduce fertilizer use. This project will study how hidden organic nitrogen changes and moves toward groundwater across farms and prairies in Nebraska, giving farmers, water managers, and policymakers better tools for fertilizer and land-management decisions. The project will reach K-12 students, educators, and the public through workshops and train the future STEM workforce, including graduate students, undergraduates, and high school students.

The project will define the mechanisms that control the persistence, transformation, and transport of reactive organic nitrogen in the vadose zone across a precipitation gradient. Pools of organic nitrogen and transformation pathways will be characterized using field sampling, high-resolution chemical characterization, and nanoscale infrared spectroscopy. Metagenomic and metatranscriptomic sequencing will identify the microbial taxa and gene networks driving the generation of nitrate. Metabolic and reactive transport models will be parameterized using integrated datasets to predict nitrate mobilization under varied hydrologic conditions.